Non-variational Plateau problems in geometry and general relativity

The projects in this proposal aim to advance existing and to create new
approaches to attack existence problems of prescribed curvature type that
are of interest in geometry and mathematical physics. The P.I. proposes to
refine techniques from his previous work to address existence, regularity,
and global properties of apparent and generalized apparent horizons in
general relativity. In particular, the P.I. plans to investigate these
quasi-local notions of the event horizon in light of certain lower order
features, much akin to those of minimal and constant mean curvature
surfaces, for their relation to positive mass type theorems, and in
particular to the space time Penrose conjecture. In a separate project, the
P.I. plans to study the extent to which these techniques can be adapted to
include an existence theory for a wide range of embedded hypersurfaces of
prescribed curvature. A second, independent direction in the proposed
research is a potentially open-ended collaboration with N. Kapouleas on
gluing problems for constant mean curvature surfaces.

The projects in this proposal are inspired and driven by allowing
analytical, geometric, and physical intuition to guide one another in the
spirit of R. Schoen and S.-T. Yau. The special surfaces whose existence and
properties will be investigated here are relevant in a wide variety of
geometric and physical contexts, in particular in mathematical relativity -
Einstein's theory of gravitation. A major objective of the proposed
research is to exploit a parallel between well-known properties of soap
films on the one hand and the geometry of black hole boundaries on the
other hand. Through this connection, powerful techniques from analysis and
geometry have entered the picture and are now at hand to further our
understanding of the geometry of black holes.